Integrating Science Across the Elementary School Curriculum

Teachers and administrators are ready to integrate more science-related reading and writing into the curriculum but they lack direction. This project will help teachers make connections between hands-on scientific inquiry and science related reading and writing. Year one of the three year project will focus on the thought processes employed by expert teachers as they attend a summer program on science related children's literature and inquiry science, read professional publications, plan for instruction, and evaluate their own practice. During the second summer the teachers will use information gathered from scientists, authors of children's science books, librarians, museum staff, and project personnel to create an in-service program which focuses on one existing inquiry unit which they have modified to incorporate science reading and writing. These in-service programs, which will seek to teach the process of integration as well as the content of hands-on science and science-related reading and writing, will be field-tested during the 1991-2 academic year. During the third summer, the master teachers will conduct a five-week institute to train a second generation of teacher-consultants on integrating science across the curriculum. Materials from the project which support this type of inservice and which are based on the experiences of the master teachers will be then be edited and published by the project staff. This should provide others with an excellent resource which could be used in every inservice program designed to encourage teachers to use integrated inquiry based hands-on science with young children. The cost sharing for the project is 52% of the NSF portion of the award.